SSC: Rensselaer Summer Science Enrichment Project

SSC-9353244 Rensselaer Polytech Inst. Troy, NY Smith, Mark Rensselaer Polytechnic Institute proposes to design and implement a five-week residential Summer Science Enrichment Program for fifty entering 7th, 8th and 9th grade minority students per year, July 1, 1993 - June 30, 1996. The principal objective is to design the summer experience to use Cognitive Apprenticeship and project team approaches to facilitate learning and problem solving skills. The summer program will model science and engineering processes using a project-oriented, problem solving instructional format. Participants will be selected from target schools in Albany, Schenectady and Troy City School Districts, New york State. Participants will form ten 5-member teams, each team working on a project to be completed at the conclusion of the summer. Coursework will consist of a technology lab, chemistry lab and research shills. Supplemental activities will consist of career exploration in the sciences, engineering and health professions, field trips to local industry and science museums, recreational activities, team competitions, and a mentoring component using Rensselaer faculty and professional scientists and engineers. Instructional staff will be selected from local schools and residential teaching assistants will be selected from Rensselaer undergraduate/graduate students. Participants will enroll in Rensselaer's academic year precollege programs to continue the efforts begun during the summer. The planned outcome from participation in the Summer Science Enrichment Program is to prepare participants to pursue high school coursework that will equip them with the kinds of skills and knowledge leading to postsecondary education and careers in the sciences, engineering and health professions.